Implementation of a Direct-executing Simulation Language on a New Multi-Processor Environment

To meet future needs for a convenient simulation environment with higher computing speed and large problem size, this Small Grant for Exploratory Research (SGER) will combine a direct-executing language with a new low cost multi-processor environment. The multi-processor system is based on AT-type single-board computers. This will: 1. permit solution of large problems 2. increase execution speed with parallel processing, and 3. give a group of graduate student new insight into multi-processor hardware and software problems, including dynamic model partitioning.